Industry/University Cooperative Research Center for Power Systems

ABSTRACT
EEC-9908690
VITTAL

The five-year continuing award funds Iowa State University to be a new research site of the multi-university Industry/University Cooperative Research Center (I/UCRC) for Power Systems. This new research site is being added to the lead research site at Cornell University and the University of Illinois-Urbana Champaign, University of Wisconsin-Madison, University of California-Berkeley, and Washington State University.

The Iowa State University research site's research agenda will address 1.) System Optimization Using Risk Based Security and Distributed Knowledge 2.) Market Interactions and Market Power, 3.) Robust Control of Large Scale Power Systems, 4.) Voltage Stability Constrained ATC Calculation and 6.) Chaotic Load Models for Power Systems.